Conference: Midwest Numerical Analysis Day 2026

The Midwest Numerical Analysis Day 2026 is a regional conference held at the University of Notre Dame that brings together researchers in numerical analysis and scientific computing, with an emphasis on early-career mathematicians from institutions across the Midwest. Numerical analysis underpins modern advances in science, engineering, and technology, including artificial intelligence, energy modeling, and large-scale scientific simulations that are important to many areas of research and industry. By providing an accessible and affordable forum for sharing ideas, the conference strengthens the research community, promotes collaboration, and supports the development of the next generation of computational scientists. Targeted support for students, postdoctoral researchers, and junior faculty broadens participation and contributes to a strong national research workforce.

The project organizes a two-day meeting consisting of plenary lectures, minisymposia, contributed talks, poster presentations, and a panel discussion focused on current research in numerical analysis and scientific computing. Technical areas include finite element and high-order methods, computational fluid dynamics, machine learning for partial differential equations, model reduction, and inverse problems. Plenary lectures by leading researchers highlight recent advances and emerging challenges, while specialized sessions facilitate focused technical exchange. The conference design emphasizes participation by early-career researchers and encourages interdisciplinary interaction, supporting knowledge transfer and the development of new research collaborations within the numerical analysis community.